Experiment-Based Modeling and Computation in Applied Mathematics

This project will support the purchase of laboratory and computing equipment which will be used to restructure the teaching of applied mathematics courses at the University of New Hampshire. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of improving the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering. The purpose of the laboratory will be to establish a setting where students will confront three important components of a mathematical application: (1) the reality of the system under study, (2) the mathematical model of that reality, and (3) the computational algorithms which are used to relate the two. Students will be enabled (1) to develop and explore mathematical models of a variety of systems which display fundamental physical and engineering concepts and processes, (2) to conduct laboratory experiments based on these systems and collect data describing the systems' behavior, (3) to analyze the data using modern computational methods, and (4) to use the results of the experiments to explore the validity of their models and the algorithms used in their analyses.